Postdoctoral Fellowship: MSPRF: Higher Real K-Theories and fp Spectra

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Christian Carrick is “Higher Real K-Theories and fp Spectra”. The host institution for the fellowship is Universiteit Utrecht and the sponsoring scientist is Lennart Meier.